2011 Frontiers of Engineering Symposia (U.S., Japan-America, and European Union-U.S.)

This award partially supports a series of three national and international Frontiers of Engineering (FOE) Symposia organized by the National Academy of Engineering: Japan-America FOE (June 6-8, 2011, in Tsukuba, Japan), U.S. FOE (September 19-21, 2011, in Mountain View, CA), and European Union-U.S. FOE (November 3-5, 2011, in Irvine, CA). Each symposium focuses on four topical areas. Topics for 2011 include additive manufacturing, engineering sustainable buildings, neuroprosthetics, semantic processing, robotics, smart grid, bio-inspired materials, massive data management, future cities/sustainable cities, advanced manufacturing, and biology and computing.

Between sixty and one hundred outstanding, early-career scientists and engineers participate in each symposium. Sessions consist of presentations by speakers on leading edge research, emerging technologies, and opportunities for collaboration across science and engineering fields. The symposia foster interdisciplinary and international collaborations and serve as a reference point for many of the emerging frontiers in research and innovation in the U.S. Presentations from the U.S. FOE seminar will be posted on the NAE FOE web site.